MRI: Acquisition of Equipment for Quantum Information Processing

EIA-0079842
Yablonovitch, Eli
University of California Los Angeles

MRI: Acquisition of Equipment for Quantum Information Processing

The focus of this proposal is acquisition of a Hitachi S-4700-II field emission scanning electron microscope (FESEM) with resolution (secondary emission mode) of 1.5nm at 15kV. The proposed equipment will help make an optical communications receiver and transmitter technology that can transfer quantum coherence and entanglement from photons, to spins in a semiconductor and back to photons again. Since the photo-electron spin is reasonable long-lived, the quantum information can be stored and act as quantum memory. If this technology is successful, it can become the front end for more complex semiconductor based quantum processors in the future, perhaps even a full-fledged quantum computer.